39th Maize Genetices Meeting, to be held in Clearwarter, FL March 13-16, 1997

9701439 Cone The Thirty-ninth Maize Genetics Meeting will be held in Clearwater Beach, Florida, March 13-16, 1997. The atmosphere will be conducive to interaction between scientists at all levels and pursuing different approaches to an understanding of maize biology.